Similarity Methods for Dynamic Image Analysis

Dynamic image is a series of static images with a specified order and elapse time interval between each element of the sequence. The difference analysis of dynamic images and the usual scene analysis is that in addition to information being extracted from each element of the sequence, information from the sequence of images must be time integrated. Efficient computational algorithms for treating time-sequence data sets plays a central role. Computational methods for measuring the local spatial and temporal properties of digital dynamic images will be developed. Spatial similarity for aligning images in an image sequence (registration correction), and temporal similarity techniques for measuring local temporal changes and correction between them will be used. Algorithms will be developed for the calculation of spatial (two- dimensional) and temporal similarity measures which can be utilized for the processing of gigabyte data arrays, e.g. satellite and medical imagery. The emphasis will be on trade-offs between computational efficiency and accuracy.